INCLUDES DDLP: Water Network for Team STEM (WaNTS)

ABSTRACT

This project is a Design and Development Launch Pilot (DDLP) of the NSF INCLUDES program. The goal of the project is to enhance the knowledge and applicability of science, technology, engineering, and mathematics (STEM) for a broad cross-section of people living in the U.S,-Affiliated Pacific Islands. The focus will be on water resources, which is an extremely important topic for this region and equally relevant nationally. The project will engage local community groups and schools in water monitoring, sampling, and analysis, in order to promote the benefits of science education and careers among a population that is underrepresented in these areas. Moreover, the project will improve the capabilities of the island residents for making decisions about sustainable use and protection of these scarce resources. A functioning network will be established among the islands that will have a positive impact on the health and well-being of the residents.

This project will use water as a highly relevant topic in order to involve a wide range of individuals in both general STEM learning and the basic scientific principles as applied to water resources. Specific aspects include engaging K-12, higher education, informal educators and community members to manage water resources in a sustainable fashion that will reduce disaster risk. In addition, the project will empower local communities through water literacy to make better informed, evidence-based decisions that balance the needs of diverse stakeholder groups. The overarching goal is to further advance the inclusion of underrepresented learners in STEM fields. Benefits to society will accrue by: increasing STEM learning opportunities for ~6,500 students from underserved and underrepresented Indigenous Pacific Islanders that will enhance their eligibility for STEM careers; building community resiliency through a collective impact network to resolve emerging water crises; and fostering collaboration among different constituencies in remote communities to make better-informed decisions that reflect the needs and constraints of diverse interests.